Range Arithmetic

Range arithmetic is a variety of interval arithmetic, so simplified that the computation for each one of the four rational arithmetic operations requires a minimal number of extra steps beyond those needed by conventional floating point arithmetic. The numerical answers produced by range arithmetic are accurate to a prescribed number of decimal places. This investigation is directed towards new problem solution areas for range arithmetic, and the generation of a description of range arithmetic in a form that makes for easy construction of a range arithmetic module.